FuSe-TG: Towards TeraCity in South Texas: Sub-TeraHertz City-scale Wireless Networks

Sub-THz, which is usually defined as the spectrum between 100 and 300 GHz, can provide enormous bandwidth with 10s-GHz-wide channels for unmatched communication throughput, and is widely considered to be a promising frequency band for beyond-5G communications. To truly harness sub-THz bands in large-area city-scale wireless networks, we need semiconductor and wireless technology breakthroughs to simultaneously support wide coverage, ultra-large bandwidth, and high node mobility. The goal of this project is to build a team in South Texas with expertise covering different aspects of the communication system design and to investigate key technologies in the sub-THz bands. This project also involves a coherent workforce development and outreach plan to develop a diverse workforce that is critical to the semiconductor industry and address the every-growing talent gap it faces.

There are three research thrusts in this project to realize the vision of TeraCity, involving co-design of sub-THz devices, circuits, antennas, packaging, and algorithms. (1) Power thrust: to develop high-power and energy-efficient sub-THz radio front-end. (2) Bandwidth thrust: to develop high-speed high-resolution data converters. (3) Mobility thrust: to develop new beamforming methods to generate highly directional beams yet can track node mobility.